Organic and Inorganic Compounds in Marine and Transitional Marine Environments: A Training Experience for Under- graduate Science Majors

The University of South Alabama will purchase an automated X-ray diffractometer which will be used to improve instruction in the analytical methods course for geology, biology, and chemistry students. In addition to being used to train students in the methods of solid state organic and inorganic phase analysis, the equipment will be used by advanced undergraduate students to carry out research projects in environmental science. The University of South Alabama will match the NSF grant with an equal amount of funds plus $1,000.